U.S.-Argentina: Stimulation of Oxygen Radical Production by Ferritin

Cedarbaum 9224797 This U.S.-Argentina Cooperative Science Program award supports travel expenses of A. Cederbaum, Mount Sinai School of Medicine, New York to Argentina. Dr. Cederbaum will carry out research in biochemistry, in collaboration with S. Puntarulo and A. Boveris, of the Univ. of Buenos Aires. The award also covers disposable supplies needed for the research and some publication costs. The research id directed towards understanding the role of transition metals in catalyzing the production of active oxygen radicals by biological systems, in particular the ferritin system. The physiological role of ferritin is important, and the approach taken by the investigators is likely to solve some long-standing problems involving the action of ferritin.